Young Scholars Program in Mathematics and Physics -- EARLY ALERT

Hampton University will initiate a three-week, residential Young Scholars Early Alert project in Mathematics and Physics for 24 minority students entering grade 7. The program will focus on student involvement in mathematics and physics projects with Hampton University physics and mathematics professors, scientists from a Department of Energy site, the Continuous Electron Beam Accelerator Facility (CEBAF) and NASA. Project goals are to enhance mathematics and physics skills and to stimulate career interest in science-related fields among young minority students.